CAREER: Exploring Computing Identity Formation and Curriculum Innovation in Transdisciplinary STEM Research Experiences

Solving today's societal challenges requires transdisciplinary research and educational models that prepare undergraduates for collaborative, cross-disciplinary work. This project investigates how computing can bridge disciplines while supporting student persistence and identity formation in STEM. Using participatory design-based research, it pursues two objectives: (1) examining how students develop computing identities and computational thinking through transdisciplinary experiences, and (2) designing and evaluating curriculum that uses computing as an integrative bridge. The research identifies curriculum design principles and pedagogies that support computational thinking; examines how collaborative experiences shape identity and career trajectories; and analyzes factors enabling effective transdisciplinary teamwork. It contributes to computer science education and design-based research by advancing computing identity frameworks and understanding how students navigate computing across disciplinary contexts. Outputs include evidence-based curriculum, design principles, assessment tools, and models for scalable, collaborative learning environments.